Soliton Reverberation

The principal investigator will conduct research into software devices for capturing knowledge from a realtime context and converting it to an effective computational form. The artificial neural network learning paradigm will operate on spatiotemporal patterns and has the following characteristics: operates continuously without ad hoc supervision; stores novel data upon a single presentation; retains stored patterns indefinitely; makes efficient use of its storage resources; stores patterns in a form which, upon recall, is effective in the computation of predictive estimates and adaptive motor control signals. The algorithm employs an entropic definition of homeostasis and implements a generalized Kalman filter using learned environmental dynamics.